WORKSHOP: IDM 02 Workshop

This workshop is the annual IDM (Information and Data Management) Program's Principal Investigator meeting. The IDM principal investigators as well as invited visitors from academia, industry and government attend this workshop. The purpose of this workshop is to review the progress made during the past year and formulate strategy for IDM research. The abstracts of projects funded by IDM are compiled and distributed at the workshop. The workshop consists of invited presentations, panels and breakout sessions.